International: Planning visit to Develop a Research Project on Chemical and Advective Processes in Coarse-Grain Sediments and their Effect on Coastal Marine Chemistry

0105464
Windom

This Americas award will support a visit to Brazil for Drs Herbert L. Windom and Richard A. Jahnke of the Skidaway Institute of Oceanography to plan a collaborative research proposal in the area of coastal marine biogeochemistry with Dr. Felipe Niencheski, Loaboratorio de Hidroquimica of Fundacao Universidade Do Rio Grande in Brazil.

Topics for discussion during the proposed visit will include chemical and advective processes in coarse-grain sediments and their effect on coastal marine chemistry. Since coastal lagoons comprise 13% of the world's coastline, a study of these systems is critical to understanding how inputs from them can alter the biogeochemistry of the adjacent coastal ocean.